RI: SMALL: Statistical Linguistic Typology

This project considers the unification of two view of language: that
from natural language processing and that from linguistic typology.
Our view is that typological information is both useful for solving
real-world natural language processing thats and automatically
derivable from language data. This research first explores how to use
typological knowledge to improve performance on problems such as
dependency parsing and machine translation for low density langauges.
Intuitively, our statistical models waste time exploring a hypothesis
space that is too big: the space of realistic grammars is much smaller
than the space of all grammars. The second part of this research
considers the automatic acquisition and boostrapping of typological
knowledge from raw text. The outcome of this research is: (a)
improved statistical models for hard natural language processing
problems; and (b) a larger library of typological universals that have
been derived automatically from data. Our outcomes are empirically
evaluated on the raw language processing tasks and in terms of the
quality of the universal implications mined from data, but comparing
them with known repositories of universals.

Our results will impact the fields of natural language processing and linguistics. From the research side, this research will find applications in a wider variety of problems than the ones we intend to study; in particular, the use of linguistic universals in natural language processing technology
will fundamentally change the way multilinguality is addressed in this
field. From a linguistics perspective, the goal of this project is to
shed new light on linguistic universals. This should impact not only
the area of typology, but also the study and preservation of
endangered languages. By automatically identifying typological
features and implications from data, the process of documenting
endangered languages could be made more efficient: leading to a
smaller loss of knowledge of these languages.